Low Complexity Joint Source and Channel Coding

ABSTRACT NCR-9714696 Zeger, Kenneth Institution: University of California - San Diego Title: Low Complexity Joint Source and Channel Coding ________________________________________________________________ The goal of the project is to develop effective joint source-channel coding techniques. The main objectives are to achieve a deep theoretical understanding of combined source-channel codes and to develop practical algorithms that can effectively be used in real applications such as low-bandwidth image compression and low-delay speech coding. Very narrow bandwidth transmission channels, such as in mobile cellular telephony, require efficient coding schemes to protect the transmitted source information from the corruptive effects of channel errors. In particular, low complexity techniques are needed for low delay real time implementations. This project will investigate joint source-channel coding techniques with an emphasis on image, video, and speech coding applications. Both packetized and non-packetized transmission systems will be studied. A summary of the topics to be investigated is given below: -- Variable Rate Source Coding for Noisy Channels. -- Optimal Tradeoff Between Source Coding and Channel Coding. -- Feedback Control for Progressive and Region Selective Image Transmission for Wireless Communication Channels. -- Structured Index Assignment, Vector Quantization, and Channel Coding